Optical CDMA for Internet Operation at Terabit Rates

In this project, three researchers, and a team of graduate students, from
the University of California, San Diego (UCSD), shall undertake
theoretical and experimental investigations of data modulation schemes for
efficient information transmission in conjunction with CDMA encoded
ultrashort pulses in an optical fiber. Efficient modulation formats will
result in aggregate transmission rates exceeding one terabit/second, with
individual user rates on the order of 100-1000 megabit/second. The specific
objectives of this project include modeling of the CDMA, statistical
analysis of the transmitted waveforms, investigation of various CDMA codes
that support thousands of users with minimal interference, bit error rate
analysis of received signals for various modulation schemes, means to
provide QOS levels, modeling and characterization of the distortions
induced by the fiber channel, adaptive equalization techniques for reducing
fiber distortions, computer simulations of the modulation schemes, and
experimental evaluation of the modulation schemes, transmitter, optical
channel, and receiver. The goal of this proposal is to demonstrate a
prototype network with several users employing a modulation format which
when scaled up to the full number of users will carry over one terabit per
second of information.

The potential impact of the work will be in the proof that CDMA encoding of
ultrashort pulses is a realizable and desirable alternative to wavelength
division multiplexing (WDM).